Support for Student Teams to Participate in International Challenge at Annual Conference of American Society of Precision Engineering; Minneapolis, Minnesota; November 1-5, 2021

This award supports graduate and undergraduate students studying at US institutions (including those from under-represented groups) to participate in the 36th Annual Meeting of the American Society for Precision Engineering (ASPE). This gathering will be held in the first week of November 2021, in Minneapolis, Minnesota.

This award will enable student teams to participate in an international student challenge and provide opportunities to exchange ideas with leading researchers and engineers from worldwide industrial and governmental facilities as well as with students and faculty from both domestic and international schools. The Annual Meeting of the American Society for Precision Engineering is considered a globally-leading professional gathering in the precision engineering area; hence, in addition to nurturing a global manufacturing vision, participants will learn the latest results and innovations in these fields.